Surface Rupture Earthquakes and the Mechanics of Earthquake Faulting

The proposed work will develop new observations and data from historical ground
rupturing earthquakes to improve understanding of the earthquake rupture process. Prior
observations have worked to define the role of fault geometry in rupture propagation, addressed
and discounted self-similarity in the description of surface rupture slip distributions, shown
clearly that fault rupture is not consistently uni- or bi-lateral, that earthquakes do not consistently
initiate on the section of fault ultimately recording maximum slip, and thatthe relationship
between average coseismic slip and rupture length for large strike-slip earthquakes appears to
require coseismic slip at progressively greater depths below the seismogenic layer as a function
of rupture length. Previous work was been limited by time and funding to a set of about three
dozen large continental earthquakes which shared the characteristics that there existed (1) maps
of the surface rupture trace, (2) maps of the nearby active faults that did not rupture, and (3)
measurements of coseismic offset at many points along the strike of the rupture to define the
surface slip distribution. The resulting compilation has already become a heavily cited and
widely used resource for the larger earthquake physics community. This work will extend
previous analyses to a list of more than twice as many earthquakes that have produced surface
ruptures but for which documentation may not simultaneously satisfy all three criteria. The
premise of this proposal is that many observations and insights are yet to be gained in following
a similar approach and extending the analysis to these additional surface rupturing earthquakes.

Broader Significance:
Placing observational bounds on our efforts to understand the physics of the earthquake
process is at the heart of quantifying earthquake hazard imposed by mapped active faults; this is
the broadest and most practical impact of the proposed research. Other researchers have
developed numerical models of earthquake rupture behavior, but knowing how well they predict
real earth behavior depends on observational data from real ground ruptures. Research questions
include how far a rupture can jump from one fault to another, how angle deviations in a fault
trace affect rupture, how deep into the crust rupture extends, and how surface rupture correlates
with expected ground motions. As a practical example, the empirical observations will improve
tools to define the expected endpoints and thus rupture lengths of earthquakes in California.
Funding will also contribute to the training of a graduate-level geoscience student.